New Developments in Marine Science and Technology: Economic,Legal, and Political Aspects of Change

The Law-of-the-Sea Institute (LSI) will sponsor a conference in 1988 on "New Developments in Marine Science and Technology" with a focus on the implications of these developments on the economy, policies, and law of the nations of the world. The conference will consider among others the following: improved capabilities for prediction of atmospheric and oceanic climate; increased utilization of marine resources; new stresses on the marine environment; use of ocean energy; and increased needs and capabilities for conducting marine research. Then, the conference will consider the impact of these changes on the global economy and that of individual nations; international and national policies for use and management of the ocean; and the international legal regime for the oceans.